Instructional Improvement in the Chemistry Laboratory Program

This project was designed to upgrade the undergraduate chemistry curriculum at the institution. The objectives were to expand the laboratory program in chemistry in the upper level courses and to provide more equipment with which to carry out student oriented research projects. The project forms an integral part of the University plan to emphasize the sciences on the campus. The specific activities of the project involved two specific areas, namely (1) the acquisition of new equipment to expand the range of laboratory experiments available and (2) the expansion of the research program. The main outcomes of the project are an improvement in the basic undergraduate curriculum in chemistry through an improvement in the resources that are available to the student. The improvement results in a better prepared graduate of the University who in turn is be better able to compete at the professional level after graduation. The institution contributed to the project in an amount slightly in excess of the NSF funds.